Robust Control for Systems with Mixed Perturbations

The proposed research is concerned with control design for systems with uncertainties. For parametric uncertainties the investigation will focus on both stability and performance issues with the purpose of reducing the computational complexity associated with such measures. The systems subjected to structured norm-bounded perturbations will be investigated for robust stability under different modeling assumptions on the perturbations from both the signal spaces and structural properties points of view. The investigation will include, the problem of designing adaptive controllers using the techniques of sensitivity analysis, and slowly varying systems. This approach allows greater flexibility in the plant and controller parametrization. Self-adapting systems designed on the basis of sensitivity analysis have proved to be very successful in many applications. However, a complete theoretical analysis of such systems is not available, and the performance requirements encounter many parametric obstacles.